Experiments with Four Helium and Three Helium-Four Helium

Interesting and timely experiments in the areas of helium 3 and helium 4 mixture films, localization, and the behavior of helium in restricted/disordered environments will be performed. In each case, the vehicle to the phenomenae of interest is a helium film and in a number of situations the experiments address questions which transcend the helium community. They will study mixture films by means of the combination of NMR and third sound techniques with a focus on an elucidation of the advent of interactions among the helium 3. In the area of localization, they seek to observe and study frequency dependent localization and correlation effects in two dimensions predicted by emerging theory. In other work, they seek to study the properties of helium in cylindrical and disordered media.